Scintillator and Waveshifting Fiber Tracking Detector

Research and development will be carried out towards producing a high efficiency neutron polarimeter based on wave shifting fibers imbedded in long plastic scintillators. A hodoscope stack of such devices coupled to charge coupled devices or silicon photodiodes will provide tracking information for recoiling protons from elastic neutron-proton scattering within the hydrogenous scintillator material. Order of magnitude increases in efficiency are possible over traditional double scatter methods (0.3% efficiency), with a much more compact and versatile detector. Such developments will be important for use at high energy nuclear physics accelerators under construction because of diminishing cross sections with increasing energy.